ADVANCE Partnerships for Adaptation, Implementation, and Dissemination (PAID) Award: Collaborative Research - Atmospheric Science Collaborations and Enriching NeTworks (ASCENT)

This project will create a discipline-specific, well-designed program focusing on women
in atmospheric science/meteorology to create leaders for advancement.
The emphasis during the proposed three-day Atmospheric Science Collaborations and
Enriching Networks (ASCENT) summer workshop program and follow-up reunion
events will be to initiate positive professional relationships, among female faculty of
different ranks and postdoctoral researchers. These individuals will work in teams (each
senior scientist will be paired with two junior scientists) and foster connections.
Furthermore, while networking with like-minded women scientists, participants will have
the opportunity to explore specific promising practices toward eliminating the "leaky
pipeline," defined by the attrition of women at different stages in their academic careers.
By fostering relationships among women faculty and researchers, ASCENT will
demonstrate a commitment to developing research bases and improve the quality of
collaborative atmospheric research conducted at multiple universities and colleges.
ASCENT has been designed to achieve the following specific goals:
1) Ensure that junior women scientists know about and have access to resources and
people who can help guide them through their career and life path.
2) Encourage positive mentorship and create mentoring opportunities.
3) Learn and teach others about primary obstacles for women in atmospheric sciences
and meteorological fields, and develop or share communication tools to assist in
navigating these obstacles.
4) Meet potential scientific collaborators at other institutions.
In order to ensure success and longevity of the proposed workshop and collaborative
experience, an extensive evaluation program will be implemented. The process will
begin at the initial stage of workshop development; continue throughout duration of the
workshop and past termination to determine long-term outcomes. Evaluation findings
will be disseminated in professional forums, such as conferences or refereed journals.
Throughout these workshops, the organizers will assemble knowledge on techniques
and methodology to strength the participation of women within the fields of atmospheric
science and meteorology. This information will be disseminated to this academic
community via Eos and Bulletin of the American Meteorological Society (BAMS).
ASCENT will also produce a bi-annual electronic newsletter to provide summaries of
"lessons learned" and current literature regarding the advancement of women in
geoscience. This newsletter will be sent to all participants in the workshops, the Earth
Science Women's Network (ESWN) list serve, and other interested parties.